Research in Gravitational Physics

This award is concerned with a broad range of research in
gravitational physics. Some of the research deals with issues that have
arisen in attempts to formulate a quantum theory of gravity, such as
issues involved in the calculation of the "wavefunction of the universe".
Other projects involve investigation of the effects of strong
gravitational fields on the quantum properties of matter, such as the
extent to which certain positive energy properties continue to hold in the
presence of gravity. Yet other research projects concern the nature and
properties of classical gravitational fields in the theory of general
relativity. Some of the latter projects---such as the determination of
forces on bodies associated with their emission of gravitational
radiation---have direct implications for astrophysics and cosmology.

Although the proposed research includes a wide range of topics in
a number of different areas, there is a common theme to the main goals of
the research: To obtain a deeper understanding of the mathematical and
physical properties of the gravitational field as described by the theory
of general relativity, and to make progress toward the formulation and
development of a quantum theory of gravity. The development of a quantum
theory of gravity is currently at the forefront of fundamental research in
theoretical physics.